Development of a Liquid Xenon Time Projection Chamber for Double Beta Decay

This grant provides partial support for a Columbia University faculty member as a Career Advancement Award. A prototype liquid xenon time projection ionization chamber will be constructed in order to investigate the potential for such a device for use in measurements of neutrinoless double B- decay of 136Xe.